Generalized Layout Problems in Structural Optimization

A rigorous systematic methodology will be investigated for generating the initial topology or layout of structural members based on mathematical models and physical principles. The new method of homogenization provides a unique and exciting approach for addressing rigorously how structural topologies may be optimized. This fundamental new capability offers a unified scheme for carrying concept evolution through detail layout design, using rigorous principles together with appropriate empirical knowledge, so that realistic, manufacturable shapes can be obtained. The broad techniques and skills required are served by the diversity in the investigators team.